SBIR Phase I: Compact, Robust Integral Three-Axis Motion Detector

This Small Business Innovation Research Phase I project, if completed through Phase II, will result in a single integral motion sensor that will simultaneously measure velocities (or accelerations) along three orthogonal axes. These sensors will be a ground-breaking application of the proven molecular electronic technology (MET) employing a novel geometry, improved response properties, and a unique feedback system based charge and mass transfer phenomena. They will be low in power consumption, com-pact and extremely robust, have no moving parts, and, as a result of their total symmetry, will operate in any orientation.

These sensors should find immediate applications in: seismology, especially ocean bottom and borehole seismology; earthquake engineering; inertial navigation; industrial processing; and any application requiring measurement of velocity or acceleration. Their small size, robustness, and insensitivity to orientation make them especially attractive for field use.